Novel Numerical Approximation Techniques for Non-Standard Sampling Regimes

Title: Novel Numerical Approximation Techniques for Non-Standard Sampling Regimes

Anne Gelb and Rosemary Renaut

The PIs build on their recently developed techniques that fuse methods
from numerical approximation and inverse theory, such as for purposes
of reconstruction fidelity, with those that exploit specific application
information, such as sparsity. Their methods address both theoretical
and practical considerations. Algorithms are proposed for function and/or
image recovery, as well as to characterize and extract important information
from a data set, such as edges, or other features, without necessarily
determining the underlying function. Research objectives include (i)
developing novel approximation approaches for functional and/or feature
recovery from data that is deficient with respect to one or multiple
perspectives, i.e. data is under-sampled or missing, may be noisy, is
measured via a dual representation, or is otherwise non-standard with
respect to traditional numerical approximation techniques; (ii) developing
numerical approximation operators that can be directly applied to practical
data sets, or may provide a feedback to practitioners for improving sampling
protocols; and (iii) integrating techniques from numerical linear algebra
and statistical regularization that are specifically pertinent for obtaining
robust but efficient solutions of ill-conditioned problems when handling
practical data. This research will provide rigorous analysis of all new
algorithms in terms of accuracy, efficiency, and robustness, especially
in the presence of of noise, perturbations, or otherwise incomplete data
information.

Practical data collection techniques are becoming increasingly more
sophisticated. User friendly software packages allow disciplinary
scientists to successfully diagnose, predict, model, and determine
important characteristics from a plethora of measured data. Yet,
recent investigations into various reconstruction algorithms for data
collected under modern magnetic resonance imaging (MRI) protocols
have clearly demonstrated shortcomings that arise when pragmatic
algorithmic modifications are used without considering fundamental
mathematical issues regarding accuracy and measurement error. Some
currently employed algorithms in fact yield both incorrect diagnoses
and additional procedural costs. This project extends the PIs prior
research and addresses the development of novel mathematical techniques
for handling issues associated with extracting functional and feature
information from data acquired by non-standard sampling protocols.